Engineering Research Deployment Teaching Initiative: Tools for the Deployment Integrated Process Operations Research toChemical Engineering Curriculum and Industrial Practice

9309591 Doyle Computer-aided process operations management includes tasks such as process monitoring, regulatory control, data reconciliation, unit and plant-wide optimization, process fault diagnosis, supervisory control, planning and scheduling. Due to the inter-dependencies of these tasks, operations management involves coordination of these tasks in an integrated manner. The proliferation of disparate tools and techniques to carry out these different tasks imposes barriers to problem integration by fragmenting the system implementation and the solution process. Dealing with integration requires a careful choice of problem- solving paradigms, knowledge representation, search and reasoning techniques so as not burden the individual tasks and at the same time providing a unified framework. In this research, the researchers will develop a new course on computer integrated process operations that will address the nature of these operational tasks, the character of integration, the use of artificial intelligence, math programming and nonlinear modeling techniques that are necessary and inevitable for achieving this automation. This course will bring state-of-the-art tools and techniques and industrial case studies to the class room to educate and prepare undergraduate and graduate students in current trends in computer-integrated manufacturing in the chemical process industries.